Fifth Pan American Symposium on Perspectives for Pan American Collaboration in Experimental Physics; Cartagena, Colombia, Aug 17-21 1992

This Science in Developing Countries (SDC) award will partially support the Fifth Pan American Symposium on Perspectives for Pan American Collaboration in Experimental Physics to be held in Cartagena, Colombia. The Symposium, which is jointly organized by Professor Leon Lederman of the University of Chicago, Dr. Roy Rubinstein of Universities Research Associates, Inc., and Professor Eduardo Posada of the Universidad Nacional de Colombia, proposes to review the status of high energy particle physics and other fields of physics with an emphasis on increasing Latin-American participation in science and the associated technology. The Symposium will help to stimulate and assist in the formation of research groups in Latin America and explore mechanisms for U.S.-Latin American collaboration in various fields of physics. The meeting will bring together outstanding researchers from the U.S. and Latin America and should help to improve communications among them.